Talking Mathematics: A Model For Long-Term Teacher Enhancement

This three year project is development of professional materials for teachers of mathematics. Building on experience in an earlier teacher enhancement project that focused on mathematical communication as a support to learning, this effort will develop and pilot a long-term teacher enhancement model for the improvement of mathematics education for elementary school teachers. In particular, they will develop, implement, and pilot a package of print and video materials for professional development, to be used by "explorer" teachers in small inservice group settings. Teachers who have been working with the PIs in a previous related project will be involved in the development; the materials will be pilot tested with teachers in Boston and Chelsea public schools. Cost sharing is provided by school districts and TERC as 19% of the NSF award.